1997 IEEE INFOCOM International Conference on Computer Communications; April 7-11, 1997; Kobe, Japan

This award is for travel support for the April 7-11,1997 IEEE INFOCOM International Conference on Computer Communications held in Kobe, Japan. This annual international conference is jointly sponsored by IEEE Computer and Communications Societies. INFOCOM has become a premier meeting for examining research advances made in the state-of-the-art computer communications technology. INFOCOM addresses research in multimedia, networking architectures and protocols; network design, planning and management; photonic switching and optical networks; protocol design, analysis, and specification; congestion and flow control; network security and privacy; distributed systems and network algorithms; internetworking and interoperability; and high speed networks.